Visualizing Complex Projective Spaces and their Applications

ABSTRACT
0204112
Hanson, Andrew
Indiana U Bloomington

Complex variables form the basis for virtually every aspect of modern science, and complex
projective spaces are the home to the rich world of objects and structures that arise from com-plex
variables. Yet attempts to depict geometric aspects of these spaces have been scarce due the
prodigious difficulty of higher dimensional visualization and poor understanding of the wealth of
relevant problems that touch on complex projective spaces. Modern computer technology provides
a number of very significant new tools symbolic manipulation programs, numerical optimiza-tion
programs, and interactive computer graphics visualizations that can provide powerful as-sistance
for the human mathematical intellect. The benefits of exploiting these tools fall into two
major categories: (i) lowering the bar, so to speak, so that a larger number of people, possibly
even interested lay persons, can understand the significance and excitement of previously inacces-sible
mathematical concepts; and (ii) raising the potential level of research attainment to allow the
solution of problems that would be nearly impossible using conventional mathematical research
methods.